Algorithm Development for Turbulent Combustion Calculations

The objective of the proposed work is to develop, test and demonstrate a new generation of numerical methods to solve the pdf equations for turbulent combustion. In several major industries, there is an increasing use of turbulent combustion models to aid the design and development of combustion devices. The usefulness of these methods has already been established, but it can be significantly enhanced through improvements in the modelling and computational implementation. PDF methods provide the needed capability to handle finite-rate kinetic effects, such as the formation of NOx and the burning of CO. However, the focus is not on modelling issues, but on the computational implementation of pdf methods. Industry requires methods that are much more accurate, robust and economical than those currently available. A radically new Monte Carlo method will be developed to solve the pdf equations. It will be second-order accurate in space and time; it will include a PISO-type mean pressure algorithm applicable both to low-speed and high-speed flow; it will incorporate advanced variance-reduction techniques (to reduce statistical errors); and, it will be structured for implementation on vector and parallel architectures.